PYI: Advanced Transport in Semiconductor Structures

The PI's research interests are centered around the development and application of tools for studying charge transport in semiconductor materials. Such tools are essential in the design and analysis of new high performance device structures and in the study of basic device phenomena. During the course of the PYI program, the PI's will demonstrate InP/InGaAs HBTs with collector structures optimized to show enhanced or extended velocity overshoot effects which result from field profiling. They will also upgrade their simulators to handle transport in the strained layer systems which are showing increased promise for device applications. The recent addition of Professors Joe Campbell and Russ Dupuis to the Microelectronics Research Center has provided a tremendous boost to their experimental HBT capabilities. Dupuis's group will provide the MOCVD grown layers and Campbell's group will assist in the high frequency measurement and noise analysis of the HBTs designed and fabricated by the PI's group. An additional area of research which the PI plans to pursue during the course of this program is the development of approaches to characterize barrier transport based on noise measurements. This work will involve both the development of a noise measurement simulator (based on the Monte Carlo approach), and will also involve experimental characterization of the barrier transport and related noise. The experimental portion of this work will be done in collaboration with Professor Dean Neikirk (PYI 1986, Electrical Engineering).